Travel: Symposium on Science and Technology Driving the Bioeconomy 2023

This award is partial support of the 2023 Symposium on Stakeholders Perspective on the Bioeconomy as part of the meeting of the USDA S-1075 Multistate Committee. The biobased economy has potential to produce biofuels and bioproducts in an environmentally sustainable way. This consortia of researchers from 35 land grant universities address barriers to a bioeconomy including challenges in feedstock logistics and conversion technologies. Annual meetings of the S-1045 multistate committee are held to coordinate and share research from land grant universities across the nation. Symposiums are organized with leading researchers and speakers from funding agencies to share the latest research knowledge and coordinate future research.

The 2023 S-1075 Multistate Committee annual symposium will be held at the University of Nebraska-Lincoln. The meeting is planned to occur on July 13-14, 2023. The goal of the 2023 symposium is to develop an understanding of the key challenges when trying to commercialize bioenergy and bioproduct technologies. NSF funding will be used to support graduate students to attend this symposium and to meet with member researchers from approximately 35 land grant institutions. This is a meeting where the students can interact with the entire sector of the bioeconomy including researchers, producers, processors, financial sector, and government agencies. This will help in orienting the next workforce generation to challenges and opportunities in the bioeconomy. The proceedings from the symposium will be published and distributed widely to interested audience by S-1045 members.